CyberAI Innovation: Training the Human Firewall Through Generative Artificial Intelligence Adversaries and Metacognitive Scaffolding for Cybersecurity Workforce Resilience

This project aims to serve the national interest by strengthening the cybersecurity workforce's capacity to recognize and resist artificial intelligence-enabled threats through a novel adaptive training system grounded in learning science research. The significance of this project lies in a documented gap between the sophistication of modern artificial intelligence-driven cyberattacks and the cognitive readiness of the professionals charged with defending against them. Adversaries now deploy artificial intelligence (AI) to craft highly convincing social engineering campaigns, exploit prompt-injection vulnerabilities in AI-integrated systems, and automate insider-threat evasion, targeting human judgment directly rather than technical defenses. Conventional cybersecurity training addresses procedural knowledge and behavioral habit formation but leaves a consequential gap unaddressed, specifically the metacognitive miscalibration that makes professionals systematically vulnerable to these threats. The importance of closing this gap is amplified by the populations this project intends to reach, specifically current cybersecurity professionals, including active-duty military personnel, federal agents, law enforcement, and private-sector professionals, as well as emerging professionals pursuing graduate studies at the University of Central Florida, a National Center of Academic Excellence in Cybersecurity. The project plans to develop, deploy, and evaluate a multi-agent adaptive intelligent tutoring system that trains these professionals through targeted metacognitive calibration training, producing measurable improvements in security judgment at the point of greatest national security relevance.

The project's goals are to design and validate a three-agent architecture in which an Adversary Agent generates adaptive, profile-targeted cybersecurity threat scenarios across three threat classes, namely AI-generated social engineering, prompt injection in AI-assisted workflows, and insider behavioral anomalies; a Diagnostic Agent classifies individual metacognitive miscalibration profiles from learner decision and confidence data; and a Metacognitive Scaffolding Agent delivers personalized calibration interventions matched to each learner's active profile. The scope of the project encompasses a three-year mixed-methods longitudinal evaluation serving 120 to 200 graduate learners across required course modules at the University of Central Florida, with a pilot at a partner institution in Year 3 coordinated through the Florida High Tech Corridor. The theoretical foundation rests on four empirically identified miscalibration profiles, namely Blind Spot, False Confidence, Constrained Expert, and Rare Insight, drawn from preliminary evidence generated by the project team, each mapped to a documented cybersecurity vulnerability pattern. The evaluation plan employs a waitlist cohort comparison design consistent with quasi-experimental standards for field-based educational research, with independent summative assessment conducted by the Program Evaluation and Educational Research Group at the University of Central Florida. All training modules, scenario libraries, calibration instruments, and system source code are intended to be released as open educational resources, enabling adoption at peer institutions. This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program, which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.